Equipment and Facilities for Research at the University of Guam Marine Laboratory

The University of Guam Marine Laboratory is one of four U.S. tropical marine laboratories and is the only such facility in the tropical oceanic Pacific. It is located in the most diverse biogeographic region of any U.S. marine laboratory. The Laboratory supports the research of 7 full-time faculty, as well as numerous graduate students and visiting investigators. With the closing of the Mid-Pacific Research Laboratory at Enewetak, the addition of new faculty at the Guam Marine Laboratory and the establishment of new collaborative programs with the University of Hawaii, the University of the Ryukyus, and other institutions, the demands on the existing facility for support of multidisciplinary and collaborative research programs have increased. This project will provide funds for replacement of the facility's seawater system and improvements to allow access to the facility by the handicapped. The enhancements of the facility will enable the Laboratory to better support both existing and developing research programs.